An Opportunity to Profile State Parameters and Winds Near the Northern Peruvian Coast During a Large El Nino

Balsley/Abstract The purpose of this activity is to obtain vertical distributions of both temperature and moisture near the coast of Peru (at 4 degrees South) using radiosondes equipped with Vaisala sensors. The larger meteorological purpose is to caputrue the thermodynamic structure of the atmosphere during the initial stages of an El Nino especially in a region where such measurements have never been made.